Travel Support for the 42nd International Symposium on Microarchitecture

This proposal seeks travel support funding for the 42nd International Symposium on Microarchitecture (MICRO-42), a top-tier conference on microprocessor related research, to allow 34 awards (at least $300 per student).

The requested funds are to be solely used to provide travel support for graduates students to defray the costs of attending and participating in MICRO-42. The priority will be given to those students who will present their research at MICRO-42 or its joint workshops. To broaden the participation, the PI plans to strongly encourage women and members of other under-represented groups to apply for the travel grant.